Workshop Proposal: Developing a Productive Agenda for US-Japan Educational Research: A Cross-National Workshop

The PI proposes a workshop to develop an educational research agenda with Japan and US specifically in the areas of Math, Science and Technology education. She proposes to bring leading researchers in mathematics, science and technology education together from the two countries a fruitful cross-national research agenda. This agenda would then be published and disseminated in the workshop proceedings. The PI requests funds for hosting this workshop in the US.